National Leadership Program in Biology

This project, sponsored by the Woodrow Wilson National Fellowship Foundation, is an 18 month project to provide information and resources to 50 carefully selected, outstanding high school biology teachers from all regions of the country. The subject content of the program is the study of the relationship of the human species to its global environment. The program begins with a four week summer institute held at Princeton University during the summer of 1991, staffed by a faculty of college and university scientists enlisted nationwide. Institute activities include presentation - discussion sessions, computer and computer modeling activities, as well as experiments and demonstrations that can be used in the high school classroom. These activities culminate in the development of units that can be used to integrate the information into high school biology curricula. During the following academic year, the participants implement these activities in their own classrooms and conduct in-service and outreach sessions on these activities in their local areas. Teams of the very best participants conduct one-week workshops at sites throughout the country in succeeding summers, thus reaching less well-prepared teachers, who are the ultimate target of the program. The National Science Foundation is a participant in a much larger program of the Woodrow Wilson Foundation, so that NSF funds are being matched at a 6.75:1 ratio.